Nonlinear Control Problems for Rest-to-Rest Maneuvers of Multi-Body Vehicles using Prismatic Actuators

PROJECT SUMMARY
Page A
This proposal describes a novel research program on nonlinear control of multi-body
vehicles operating under the action of gravitational forces and control forces generated
by prismatic actuators. Multi-body vehicles are mechanical systems consisting of a rigid
base body that can translate and rotate in three dimensions and auxiliary bodies that are
constrained to move relative to the base body and to one another. The multi-body vehicles
are controlled using prismatic actuator devices, mounted on the base body. These are
linear electromechanical actuators that move a proof mass along a track fixed to the base
body. This is a novel actuation technology that has great potential for providing new
maneuvering capabilities, namely precision translation and global attitude maneuvers, for
multi-body vehicles. On the other hand, the design and operation of such multi-body
vehicles present many challenges since they are not fully actuated in the sense that there
are fewer control inputs than there are degrees of freedom to be controlled. Key aspects
of the proposed research, from which arise the major research challenges, are: (1) the
presence of controlled mechanical symmetries and their associated integrals of motion and
(2) the objective of achieving arbitrary rest to rest maneuvers for the multi-body
vehicles.
Although some nonlinear control problems for multi-body mechanical systems are relatively
simple, the problems posed in this research can not be adequately handled based on the
current state of knowledge. The proposed research is the culmination of the NSF supported
research of the principal investigator over the last fourteen years. It represents an
extension of his previous research on nonlinear control of constrained and underactuated
mechanical systems to new problems that have not previously been amenable to study using
traditional nonlinear control methods. The expected contributions of the proposed
research are: (1) the development of nonlinear control theory for the class of multi-body
vehicles studied, (2) the development of innovative new system design and control
strategies for multi-body vehicles, and (3) educational impacts through student
participation in the research. The research concepts are to be applied to maneuvering
vehicles operating in space or under water, and they are ideally suited for small-scale
intelligent autonomous sensor systems operating in space or under water. The proposed
research has the potential to provide new and enhanced maneuvering capabilities for
multi-body vehicles, thereby contributing to the overall engineering infrastructure in
transportation, exploration, remote sensing, and surveillance.